1988 Northwest Regional Developmental Biology Conference May 12-14, 1988, Friday Harbor, WA

This proposal is to defray expenses for participants attending the Northwest Regional Developmental Biology Conference to be held May 12-14, 1988 at Friday Harbor. The meeting will include platform sessions of short talks in the following areas: Gene Expression in development Cellular Interactions in development Cell Lineages and Morphogenesis Gametes and Fertilization Development of the Nervous System There will also be four longer formal talks on the role of growth factors in development as well as poster sessions. These regional meetings have provided important opportunities for developmental biologists at all levels to meet with their colleagues within the region.